A Program for Underrepresented Scholars in Engineering

The Graduate Engineering Education program at Cornell University will be associated with three nationally ranked, well equipped and well staffed graduate fields: Electrical Engineering, Computer Science, and Materials Science and Engineering. Their research activities encompass a complete spectrum of studies from semiconductor and optical materials, to devices, to software and hardware, and finally to system integration. These activities propel the rapid developments of computers and communication systems. Persons with doctorates in these fields will meet extremely urgent needs for engineering faculty and research positions. This program will build on and further enhances the ongoing efforts in identifying, attracting and training graduate students from targeted groups. The goals are: development of candidates; timely support of application process for admission and financial aids; provision of a rigorous, friendly, and supportive education environment; guidance of career goals and placements.